Simulation Studies of Macromolecular Materials

9405824 This proposal concerns computational approaches to determining the behavior of membranes. In particular, the goals of this project include (1) further understanding of long-length-scale conformations of membranes (2) determining the range of various interactions between membranes separated by aqueous solvent (3) developing new algorithms for the numerical simulation of the dynamical behavior of polymers and membranes in solvent. The dynamical methodology involves treating the solvent via finite difference methods coupled with a Langevin simulation of the polymer/membrane. %%% This proposal is concerned with the shapes and dynamics of membranes. It uses new computational methodology to achieve this end. Membranes are, of course, very important in the natural world. In particular the PI will concentrate on the red blood cells, vesicles and sponge-phases. His interest is in transport of such systems and in their shape both in static and dynamic (e.g. in a flow) environment. Further he will study how membranes interact with one another when there is aqueous solution between them. The PI uses methods used in solid state physics and applies them to bio-materials and bio-systems. This is a fine example of cross- disciplinary research.